Global Invariants for CR Geometry and Isolated Singularities

Abstract

Award: DMS-0503868
Principal Investigator: Stephen S.T. Yau

This research proposal contains projects in five areas: (1)
Fundamental problem in CR geometry, (2) Explicit computation of
CR automorphism groups, (3) Simultaneous embedding problem for a
CR family of compact CR manifolds, (4) Deformation of CR
manifolds and deformation of isolated singularities, (5)
Holomorphic De Rham cohomology and complex Plateau problem. Yau
introduces a new Bergman function for any strongly pseudoconvex
complex manifold, which is invariant under biholomorphic maps. He
intends to use this Bergman function to study the CR equivalent
problem of strongly pseudoconvex CR manifolds lying on the same
variety with isolated normal singularities. He developed a new
technique to define a continuous numerical invariant on strongly
pseudoconvex CR manifolds lying on the same variety. He shows
that his invariant varies continuously in R when the CR structure
of strongly pseudoconvex CR manifold changes in the variety. Yau
observes that his new Bergman functions put a lot of restriction
on biholomorphic maps between strongly pseudoconvex CR manifold,
from which the automorphism groups of the CR manifolds can be
determined explicitly. He illustrates how this works in a
concrete example. The proposed work in (3) builds on his joint
work with Xiaojun Huang and Hing Sun Luk on simultaneous
embedding of CR manifolds. It will be done in collaboration with
Xiaojun Huang. They intend to use their prior work on further
extensions to study the most subtle problem on simultaneous
embedding of 3-dimensional CR manifolds. Yau plans to use the
techniques developed in (1) and (3) above to understand the
relation between the Kuranishi family of CR manifolds and versal
deformation of isolated normal singularities in a more concrete
manner. Finally the work in (5) is part of Yau's ongoing project
on holomorphic De Rham cohomology and complex Plateau problem. He
has shown that the vanishing of holomorphic De Rham cohomology of
the CR manifold X gives a lot of restriction on the singularities
of the variety which X bounds. He plans to use his result to
solve the clasical complex Plateau problem for 3-dimensional
strongly pseudoconvex CR manifolds in 3-dimensional complex
Euclidean space.

This research proposal has an important theme of unifying
different fields such as CR Geometry, Complex Analysis,
Singularities Theory and Algebraic Geometry together. The
philosophy and technique of the proposal will also be useful in
biotechnology. With the completion of human genomic sequence, it
is an urgent task to accurate identify protein coding regions
(exons) from genomic sequence. Similar to Yau's proposal, one can
try to find numerical characters of exons which introns do not
have. In this way, one may be able to identify all possible human
proteins. The next important task is to predict the properties of
these newly discovered proteins. Using the similar technique
developed in Yau's proposal, one may able to represent each
protein as a point in certain n-dimensional space. Proteins
which are closed to each other in this space should have similar
properties. In this way, one can predict some properties of newly
found proteins. Biologists can do experiment to verify these
properties.